Network Indicators

This project will develop network indicators of industrial R&D collaboration from three large databases of inter-firm cooperative agreements and from a set of case studies. The type of networks will include R&D cooperation, joint ventures, strategic alliances, etc. The development of the case studies will produce indicators of the factors underpinning network creation and change. Empirical analysis of the databases will yield indicators related to the characteristics and properties of network structure. These networks will be presented graphically using network graphing theory.